Multi-scale Mechanics Analysis of Bone Remodeling in Normal vs. Osteoporotic Trabecular Bone

0085137
We will address remodeling in trabecular bone from a mechanical viewpoint.
In order to understand how mechanical factors contribute to this process we
will predict local stress and strain fields at the cellular level where
bone remodeling takes place. In particular we are interested in differences
between healthy and osteoporotic bones. By knowing local fields in these
two types of bone, under the same external loads, we hope to determine
relations between mechanical load and bone remodeling in healthy and
osteoporotic bone. Our analysis will account for the hierarchical nature of
bone and will involve both theory and experiments.